RUI: Mechanisms of Aluminum Accumulation in Intact Roots andIntact Cells of Wheat (Triticum aestivum L.)

9318660 Rincon The subject of this research is the relationship between aluminum (Al) accumulation and the sensitivity of plants to this element. The goals of this project are: (1) to determine whether or not Al accumulation in the root meristems of wheat correlates with differential sensitivity to Al; (2) to explore mechanisms of Al uptake in the root meristems at tissue and cellular levels; (3) to explore whether mobilization of Al out of the root tissue and cells plays a role in Al tolerance mechanisms; (4) to investigate the nature of Al transport at the organ and cellular level; (5) to define the effects of Al on the uptake and distribution of ions in the root tips. These objectives will be achieved by using intact and excised wheat root tissue and isolated protoplasts. Analyses of Al content in the tissues and protoplasts will be performed by specific ion chromatography. Overall, the findings of this investigation may lead to a better understanding of Al stress tolerance mechanisms. ***